2011 Oceanographic Instrumentation: R/V Atlantic Explorer

A request is made to fund additional and replacement instrumentation on the R/V Atlantic Explorer, a 168’ general purpose research vessel operated by Bermuda Institute of Ocean Science (BIOS) as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes four items:

1 ? Niskin Bottles
2 ? Solar Instrument Suite
3 ? CTD sensors
4 ? Weather Instruments

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.